Phase retrieval and nonlinear frame theory

The ability to recover a signal from corrupted or incomplete data has profound consequences for national health, prosperity, and welfare. This project addresses the fundamental mathematical structure of problems that arise when linear measurements are distorted in a structured yet nonlinear way. For example, in digital imaging, pixels which are too bright get set to pure white, while in X-ray crystallography, only the magnitudes of certain linear measurements can be observed. In these cases, the nonlinear loss of information is unwanted. In contrast, the neural networks underlying modern AI consist of layers that intentionally combine a linear operation with a nonlinear activation function. Such networks are notoriously difficult to analyze, and a deeper understanding of their structure could substantially advance the mathematical foundations of AI. Across all these examples, the tools used in applications have far outpaced existing mathematical theory. By developing new methods that connect frame theory, the geometry of Banach spaces, and probability, this project advances the mathematical foundation for composing linear maps with nonlinear functions, with broad implications for signal processing, data science, and AI. The project also supports the training of graduate students and early-career researchers at the intersection of pure and applied mathematics, contributing to a scientifically skilled workforce.

Frames for Hilbert spaces give a continuous, linear, and stable method for reconstructing a signal from linear measurements. This project considers an extension of frame theory to nonlinear maps formed by composing the analysis operator of a frame with a Banach lattice operation. Although the linear maps are well understood and the lattice operators are simple, the loss of linearity in their composition poses significant difficulties for reconstruction, which are further compounded in the presence of error. The lattice operators are not one-to-one, yet the composition can still be one-to-one when the frame is sufficiently redundant, and one component of the project concerns identifying the exact redundancy required. The project further investigates when these maps are bi-Lipschitz embeddings, which allow stable recovery in the presence of error, including the more general setting where signals are restricted to a proper nonlinear subset of a Hilbert or Banach space.